Mathematical Sciences: Geometry and Toplogy of Riemann's Space

9322042 Penner The investigator will continue his study of the geometry and topology of the moduli space of Riemann surfaces. Specifically, he will study a natural simplicial completion of Teichmueller space, where the associated compactification of moduli space is conjectured to be an orbifold; this compactification should be a useful tool for several enumerative problems in geometry. Various arithmetic aspects of moduli space will be studied: polylogarithm identities should be derived from canonical forms on moduli space; there should be a map from moduli space to Volodin space relating the cohomology of moduli space with algebraic K-theory; number fields associated to fatgraphs a la Grothendieck's dessin d'enfant should be calculated for the investigator's existing database of fatgraphs. This same database should be used to calculate homology groups of various moduli spaces on the computer. There are, moreover, many outstanding analytic and arithmetic questions to be studied about his universal Teichmueller space, which is simply the space of orientation-preserving homeomorphisms of the circle modulo the Moebius group. Several of the projects above are closely related to various developments in physics. A basic object in mathematics, called the "moduli space of Riemann surfaces," has been studied for centuries. Roughly, this moduli space is the collection of all possible geometric shapes on a fixed two-dimensional surface. In the last decade or so, our understanding of moduli space has increased, both because of developments in mathematics, as well as new and exciting interfaces with high-energy physics. Indeed, many idealized but interesting real physics problems amount to questions about the geometry of moduli space itself, and this has provided a remarkable influx of techniques, questions, and ideas, both to mathematics and to physics. In this project, the investigator will continue his ongoing mathematical study of moduli space and furt her study certain of these interfaces with high-energy physics. ***